U.S.-France Cooperative Research: Cathodic Electrosynthesis of Metal Oxide Films

0003726
Rajeshwar

This three-year award for U.S.-France collaboration involves Krishnan Rajeshwar and N.R. de Tacconi of the University of Texas at Arlington, and Daniel Lincot and colleagues at the Ecole Nationale Superieure de Chimie de Paris. The investigators propose to investigate and conduct joint experiments on the mechanics of cathodic electrodeposition of metal oxide films using soluble precursor species and the role of solution additives on cathodic oxide film growth. The Texas and French groups bring to this collaboration complementary expertise in solution chemistry, metal oxide films, and in semiconductor film deposition. The collaboration takes advantage of a cathodic technique developed by the French group.

This award represents the U.S. side of a joint proposal to NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel funds and living expenses for the U.S. investigators and graduate students. The CNRS will support the visits of the French researchers to the United States. The collaboration will advance understanding of the electrosynthesis of metal oxide films and their technological applications in optoelectronics, solar cells, electrochromics, batteries, and water treatment.